Investigation of Solidification Phenomena under the Influence of Ultrasonic Waves

Dr. Choi's group has done some internally funded on the effects of ultrasonic waves on the melting process and has found some very interesting effects. Specifically, he found melting rates enhanced by as much as 250%, modifications to the form of the phase-interface, and a dependance of the behavior on the applied ultrasonic frequency. While the experiments appear to demonstrate an effect, the physics behind the phenomenon have not been elucidated. Dr. Choi proposes to perform similar experiments for the case of solidification. With recent interest in the use of phase- change materials, rate of solidification and void formation during solidification is of extreme importance. If the application of ultrasonic waves can enable the control of the solidification process, a substantial advance will have been made in this technology.